Design of a Hazardous Waste Storage Facility at McMurdo Station, Antarctica

Currently, hazardous waste is staged for retrograde outdoors at the hazardous waste storage yard at McMurdo Station. At this storage yard the materials are exposed to the elements of cold, wind blown snow and surface water runoff. Further, spill containment and security are minimal to non-existent. A modern hazardous waste storage facility/building would improve the handling and managing of hazardous waste. The Army Corps of Engineers will design a hazardous waste storage facility/building which will be an improvement over the current situation. The Army Corps of Engineers will use design criteria and past experience to see that the facility/building will be properly designed and constructed.